A Versatile Electrochemical Analyzer for Instruction in Instrumental Analysis

The goal of this project is to improve students' laboratory experience in electrochemistry at the University of Arkansas-Little Rock. Students enrolled in the instrumental analysis course and those pursuing research projects will use a versatile computer-controlled electrochemical analyzer, an instrument capable of performing most of the major electroanalytical techniques by software commands. The instrument will be used to design and carry out several laboratory course experiments as well as student research projects. With this equipment, students will gain thorough knowledge of the fundamentals and analytical applications of electrochemistry.